A Historical Record of Biogenic Sulfur and Iodine in the Central Greenland Ice Sheet

The second Greenland Ice Sheet Project (GISP II) is designed to retrieve and interpret on ice core from the ice sheet in central Greenland. This award supports the investigation of the composition of the central Greenland ice sheet at Summitt in order to obtain a historical record of recent and ancient precipitation chemistry. The primary focus of this work is on methanesulfonic acid (MSA), an atmospheric oxidation product of dimethylsulfide. In conjunction with measurements of non-seasalt sulfate and sodium, the MSA data will allow assessment of the variability in the biogenic sulfur signal, and to differentiate between the oceanic source and sulfur from volcanogenic and anthropogenic emissions. The MSA record will be examined 1) in detail over the last thousand years to assess anthropogenic impact to the sulfur cycle, and 2) over longer time scales in order to assess the relationship between the biogenic sulfur source and major climatic and atmospheric chemistry changes during glacial/interglaical cycles.